Reengineering The Undergraduate Industrial Engineering Program

This project will undertake department level reform at the University of Central Florida to reengineer the Undergraduate Industrial Engineering program. This comprehensive multi-faceted plan will involve making significant changes in the curriculum, transforming faculty instructional strategies, introducing new technology in the classrooms while providing additional developmental experiences for the students, as well as developing aggressive strategies of recruiting students into the Industrial Engineering Profession. The specific objectives
designed to be pursued during this implementation grant to achieve the stated vision and goals of the project include the following:

A. Reengineering of the Curriculum to include courses that prepares students for careers in
nontraditional manufacturing industries (i.e. service industries, information technology
industries); also the curriculum will be modified to allow students to Minor in Engineering
Management to adequately prepare for job positions and role responsibilities in engineering
management and leadership

B. Integrating Cognitive Learning Theory, which emphasizes human information processing,
with instructional design theory, which emphasizes strategies of instruction. To drive
specific course development and learning pedagogy that will influence instructional
strategies, experiential learning, and student experiences in the classroom.

C. Integrating Cognitive Learning Theory and Instructional Design Theory, to identify
appropriate uses of technology to support classroom instruction goals and student learning
objectives.

D. Developing aggressive recruiting strategies that increase awareness of IE careers among HS
students and serves to entice them to pursue Industrial Engineering with special emphasis
upon exposing members of historically underrepresented groups and females.